State-To-State Reaction Dynamics

The Experimental Physical Chemistry Program supports Professor Zare in a detailed investigation of kinematically constrained reactions, which offer the unique possibility of directly viewing the role of reagent approach geometry in reacting systems. The experiment attempts to achieve an understanding of reaction dynamics at its most fundamental level. In the reaction of Ba atoms with HI molecules, the translational energy is specified using molecular beam techniques and the BaI product state distributions are determined with laser induced fluorescence. Angular momentum constraints give detailed relationships between the incoming impact parameter and the resultant detailed product state distributions. Optical pumping of the reagent molecule is used to specify the internal state and ultimately the degree of alignment of the HI molecule, yielding state-resolved information on the correlation between reagent approach geometry and the resulting product distributions.